2010 Shipboard Scientific Support Equipment

ABSTRACT

23 July 2010
Proposal Number: 1019806
Institution: University of Miami
PI: R. Kniffin

This proposal requests numerous Shipboard Scientific Support Equipment (SSSE) items for the R/V WALTON SMITH operated by the University of Miami; namely stern A-frame repairs, anchor windlass design and installation, electronic navigation system up-grades, and analysis of the vessel’s deck bolting pattern. All of the items requested will either improve safety or enhance the science support capability of the vessel.

Broader Impacts: The R/V WALTON SMITH supports federally funded scientific research in the southern Atlantic Ocean and the Gulf of Mexico in order to expand human knowledge of the ocean environment. During operations, the vessel routinely exposes graduate and undergraduate students to seagoing oceanography. Pubic outreach is also achieved through real-time satellite connectivity from ship to shore, open house events, and educational cruises. The WALTON SMITH is scheduled to complete approximately 100 NSF sponsored days in 2010.